Automata-Theoretic Approach to Design Verification

The objective of the proposed research is the development of algorithmic
methods for design verification. Today's rapid development of complex and
safety-critical systems requires reliable verification methods. Formal
verification is the study of algorithms and structures applicable to the
verification of hardware and software designs. It combines theoretical
and experimental aspects. In the last few years, this area has seen a
dramatic expansion of activities. Verification tools are incorporated
into industrial development of new designs, forming an active and exciting
area of research where theory and practice stimulate each other.

The intellectual merit of this poject is the application of the
automata-theoretic approach to design verification, which uses the theory
of automata as a unifying paradigm for design specification,
verification, and synthesis. The automata-theoretic
perspective considers the relationships between designs and their
specifications as relationships between languages. By translating
design and logical specifications to automata, questions about
programs and their specifications can be reduced to questions about
automata. More specifically, questions such as satisfiability of
specifications and correctness of designs with respect to their
specifications can be reduced to questions such as non-emptiness and
containment of automata. The automata-theoretic approach separates
the logical and the combinatorial aspects of reasoning about systems.
The translation of specifications to automata handles the logic and shifts
all the combinatorial difficulties to automata-theoretic problems,
yielding clean and asymptotically optimal algorithms.
Furthermore, automata are very helpful for implementing
temporal-logic based verification methods, and are the key to
techniques such as on-the-fly verification
that help coping with the ``state-explosion'' problem.
Automata-theoretic methods have been implemented in both
academic and industrial automated-verification tools.

Many questions in the theory of automata on infinite objects are still
open, and more fruitful applications of automata theory in design
verification are possible. This projects aims at solving several
automata-theoretic problems with clear application to design
verification, and at develoing automata-based verification methodologies.
The broad impact of this project is the contribution to the
efforts of developing and improving formal verification methods,
constituting an additional step toward formal verification of
industrial real-life designs.